Presidential Young Investigator (PYI) Award

Dr. Djorgovski will use this Presidential Young Investigator Award to pursue several lines of inquiry within observational cosmology and extragalactic astronomy. This work will focus on the formation and evolution of galaxies and upon physical understanding of their global properties.